Institute for Mechanics and Materials

The Institute for Mechanics and Materials promotes research and education activities at the interface of materials engineering and solid mechanics. A number of workshops are conducted to bring forth major challenges in these areas. A number of pre-doctoral fellowships are supported that promote interaction of researchers with the industrial community. Several national and international visitors are invited to the Institute to bring new ideas together and to promote collaborative work.